SBIR Phase II: A Fully-Digital Transceiver Design for mmWave Communications

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to provide a new way for developers of wireless systems to test their prototypes. The estimated market size is $300 M and supports the development of many new sectors, such as next-generation cellular systems, self-driving cars, robotics, augmented/virtual reality, and unmanned aerial vehicles (drones). This project will advance a new technology, affordable and technically advanced software-defined radios (SDRs), for testing.

This SBIR Phase II project will advance the translation of SDRs. The millimeter wave (mmWave) frequencies from 30-300 GHz can be used to meet increased demand, but getting systems to work in the real-world in these frequencies remains challenging. This SBIR Phase II effort will advance an SDR to prototype systems across all layers of the protocol stack.